The Science Behind the History

This planning grant will enable The Indiana State Museum (ISM) to develop "The Science Behind the History," a program of live interactive video distance learning that includes multiple components and state-wide partners. The project is based on "ISM Live!," which uses a satellite van with video broadcast system to deliver programs from diverse historic settings throughout Indiana.

Intellectual Merit.
This project will add scientific components to interpretations of settings that usually are presented from social or cultural perspectives, including hands-on experiments at the remote broadcast-receiving sites. Scientists and historians will both be involved in the activities along with the audience participants.

Broader Impact.
Diverse, multigenerational audiences throughout Indiana will be reached through this project. In addition, it will provide a new model for interactive distance learning, as well as help establish partnerships among educational and community organizations that may lead to other beneficial long-term outcomes.